Workshop on the Solution Interactions of Macromolecules to be Held at the University of Texas Medical Branch, Galveston, TX, November 14-16, 1997

In the field of biological sciences, there is a sense of expectation and conviction that it is timely to provide training to students, postdoctoral fellows and investigators the most up-to-date developments in the theory and application of sedimentation. Beckman Instruments takes the leadership role in establishing and financing an annual symposium, the first of which will be held at the campus of the University of Texas Medical Branch, Galveston, Texas from November 14 to 16, 1997.